Conference/Workshop New Directions in Exterior Differential Systems

Abstract

Award: DMS 1321212, Principal Investigator: Joseph M. Landsberg, Jeanne N. Clelland, Colleen Robles

This grant provides partial support for a conference entitled "New Directions in Exterior Differential Systems," to be held in Estes Park, Colorado on July 14-20, 2013. The conference is intended to disseminate new and influential applications of exterior differential systems to partial differential equations (integrable PDE, systems of hyperbolic conservation laws, and control theory), complex differential geometry (variation of Hodge structure), topology of algebraic varieties (homological rigidity of Schubert classes in compact Hermitian symmetric spaces), and parabolic geometries (including conformal and CR geometries). The conference program will include three sets of mini-courses that aim to open up exterior differential systems and some of their current applications to less experienced researchers.

Exterior differential systems are algebraic and geometric renderings of partial differential equations, rooted in ideas that go back to the nineteenth century and that untangle some of the complications of nonlinear partial differential equations. The techniques of exterior differential systems are being applied in a widening circle of problems and the mini-course components of this conference are intended to make this subject accessible to junior researchers and to those with little experience in the field. The conference web site is http://www.math.tamu.edu/~robles/2013EP/index.html.